ScalaServer: System Support for Scalable Network Servers

This project develops a novel architecture for the construction of scalable Internet servers from commodity hardware and modular application software components. The architecture targets network servers based on clusters of workstations or PCs, and allows servers to fully realize the performance potential of this platform. Off-the-shelf server applications are executing on the server nodes in a modular fashion and are unaware of the existence of multiple server nodes. As a result, ScalaServer leverages both existing server applications and the price/performance curve of commodity hardware. The design of the ScalaServer architecture will be based on the results of extensive tracedriven simulations. Prototype systems for both single-node and cluster servers will be disseminated to the research community. It is expected that the project will significantly advance the state-of-the-art in highperformance, scalable, and cost-effective network server design and implementation, an area that is critical to the future global information infrastructure. The project will also contribute to the education of scientists and engineers in this important area, both at the graduate and undergraduate level.***